Data Communications Laboratory

This project introduces computer science students to a laboratory environment where they can master the concepts of data communications. The equipment in this data communications lab includes four (4) microcomputers that are configured for several network connections: a modem connection and telephone system simulator that offer typical "dial-up" connections between units; a terminal connection that allows simulation of a computer terminal - host interface; an Ethernet configuration that provides high speed networking using coaxial cable. These equipment configurations, along with some special monitoring equipment and software, allow students to gain hands-on experience in data communications. The experiments that students can perform in such an environment can only be carried on in a dedicated laboratory of the type developed for this project. This award is being matched by an equal sum from the grantee.